Runtime/Operating System Synergy to Exploit Simultaneous Multithreading

National Science Foundation
Distributed Systems Research
CISE/CNS

ABSTRACT

Proposal Number: 0410203
Principal Investigator: Freeh, Vincent W.
Institution: North Carolina State U
Proposal Title: Runtime/Operating System Synergy to Exploit Simultaneous Multi-threading

Simultaneous multithreading (SMT), a new hardware paradigm combining uni- and multi-processor features, currently lacks adequate software support. Most of today's software --- operating systems, runtime systems, and applications --- naively treats an SMT as a conventional multiprocessor. Thus, today's SMT-equipped computers do not fully unfold their potential.

This proposal focuses on a synergistic approach combining runtime and operating system support to fully exploit the capabilities of SMTs. To meet this objective, this project stud-ies three different approaches. First, it investigates the benefits of using a helper thread along side the primary thread, by building a reference implementation of an SMT-aware Message Passing Interface (MPI) library. Second, this project investigates the benefits of dynamic mode switching an application between single-thread and multi-threaded con-figurations. Third, it modifies the operating system creating an SMT-aware scheduler. Benefits of this work are demonstrated for a variety of applications, including large-scale benchmarks and other nationally relevant parallel codes.

The broader impact of this work is in three main areas. First, both PIs are working to create an inter-disciplinary educational and research program. Second, students will be educated in the interaction between distributed systems, operating systems, and
architecture. Finally, the proposed work allows for technology transfer to a wide arena of fields, such as server-style computing, cluster computing, and massively parallel comput-ing. The developed framework and tools will be made generally available to the research
community and labs.

Dr. Brett D. Fleisch
Program Director, CISE/CNS
May 28, 2004
.